US-Taiwan Research Development Visit with EASI: Summer Fellowships for Science and Engineering Graduate Students at Texas A&M to Taiwan

0314076
Nader

The project is about a planning visit for developing collaborative research work in developing collaborative research work in areospace engineering, mechanical engineering, chemistry, computer science, geology, life sciences, and education with researchers in Taiwan through the Taipei Economic and Cultural Office. in Taiwan. The proposed study would contribute to strengthening the research collaboration between U.S. and Taiwan in the subject areas.